Hopf Algebras and Their Actions on Rings

Abstract for DMS-0401399

(1) The PI will study the prime ideals in a Hopf Galois extension; such
extensions include crossed products of Hopf algebras, as well as certain
extensions of quantum groups obtained from quotients. She will also consider
representations of finite-dimensional semisimple Hopf algebras, with
particular interest in the Frobenius-Schur indicator of an irreducible
representation. Progress on such problems might be of help in the
classification program. The PI will also study the possible actions of the
Taft Hopf algebras on quantum polynomial rings. Finally the PI will study
what happens to a Hopf algebra and an algebra on which it acts when the Hopf
algebra is twisted by a cocycle.

(2) Hopf algebras are algebraic objects which have arisen in other subjects,
both in mathmatics itself (such as in knot theory and geometry) and in
mathematical physics (such in statistical mechanics and conformal field
theory). If one could classify certain Hopf algebras, it would help in
describing these other structures. Moreover Hopf algebras provide a
unifying framework for groups, Lie algebras, and their recent quantum
analogs. Thus studying Hopf algebras themselves as well as their actions
on other structures is an important problem.